Career Direction through Integrated Introductory Biology- Chemistry Laboratory and Research

This proposal is a three step sequential undergraduate biology-chemistry experience to retain science majors and to inspire them to enter research careers. Step I occurs in a student's first year with an integration of the second semester laboratories of the majors' Introductory Biology and Chemistry courses. Lectures remain separate. In order to follow the student experience of the integrated laboratories and to retain and build upon student interest in science research, Step II is a required Career Seminar course in Spring of the sophomore year. Seminar speakers from academia, medicine, and industry serve as hosts for students participating in Step III, a Summer Research internship between the second and third years of college. Steps II and III function together in the sophomore year to provide a practical application of the integrated first year laboratories and to reinforce research career goals. Two laboratory sections concurrently participate in Step I to pursue a number of nontraditional, investigative laboratory modules which integrate concepts from cell biology, molecular genetics, and general chemistry. Seven hours per week is divided into formal laboratory investigation, discussion, and comeback time. Over a 12-week period four modules are presented. These integrated, modular laboratories will examine (1) Vitamin C Metabolism, (2) Reaction Dynamics of Enzymes, (3) Sources of Energy for Life, and (4) Manipulation of Macromolecule. During the final week of each module, students analyze data, draw conclusions and in selected modules, design their own original investigations based on previous experimentation. Mathematic tutorials are available. This integrated, biological-chemical modular format directly relates to and prepares science majors for modern research-oriented upper division courses and parallel a realistic career research experience. One section of the integrated biology-chemistry laboratories is comprised entirely of women for comparison with the other two of mixed gender and with the traditional separate biology and chemistry laboratories for the other students.